Mathematical Sciences: Statistical Theory and Methodology: Regression Models, Data Transformation, Subsampling and Likelihoods

This research is to investigate (i) resampling methods for robust assessments of the precision and significance of statistical estimates, (ii) the construction of reference sets for statistical inference from experimental and observational studies, (iii) methods for choosing and using scale transformations to enlarge the scope of standard statistical methods, (iv) generalized regression models, (v) likelihood theory and methods, (vi) mixtures of distributions, (vii) comparative tests with truncated data. This research is in the field of Statistics. The new methods proposed have become feasible with affordable computing. Improvement over existing statistical methods is foreseen, specifically when data is sparse and when they are not obtained under in controlled experiments.